Applying Multiple-Instance Learning to Content-Based Image Retrieval

Applying Multiple-Instance Learning to Content-Based Image Retrieval

With the development of the web, there has been an explosion in the volume of both textual
and digital media. Effective use of that information requires efficient technology for
locating relevant material. Algorithms for textual search, such as string matching for
keyword searches, are well understood. However, effective techniques to retrieve images
based on semantic content need to be developed. Manual keyword annotation is not feasible
due to the size of the image repositories, the rich contents of the images, and the
subjectivity of human perception. This project applies new segmentation methods and
multiple-instance learning, a new machine learning technique, to the image search
problem. The research activities promise to enable effective image search in which a user
provide an example of a desired image and indicates which of a small number of candidate
images are desirable. Unlike existing content-based image retrieval (CBIR) systems, this
project uses multiple-instance learning to automatically determine which portion(s) of the
image are important to the user. Just as textual search technology has revolutionized the
way people search for textual information, efficient image retrieval based on semantic
content has the potential for large productivity gains in the way people work with images,
including better utilization of the increasing volume of information available as images,
with accompanying economic benefits. Undergraduate and graduate students will receive
training through independent research experiences, classroom presentations, and course
final projects. The PI will encourage more women to study computer science through
interactions with high school women through the outreach activities of Washington
University's Society of Women Engineers (SWE) and through interaction with college women
through mentoring activities of SWE. Dissemination of the research results will be
through conference presentations and papers, journal publications. Also papers and
software will made available at www.cs.wustl.edu/~sg.